CISE ES Postdoctoral Associate: Design of a Real-time, Fully Interactive Interface for Scanning Probe Microscopes

9504293 Brooks One of the most promising capabilities of modern Atomic Force Microscopes (AFMs) is the ability to measure surface properties (such as conductance) along with topographic information. It is an open question how best to display multiple properties simultaneously to the user. Possible representations include surface color, transparency and shininess; sound modulated by the value of the property; and various force parameters, such as surface texture and stickiness. In this project subjects such as which channels are best for conveying which parameters and how many channels can independently carry information will be investigated. Various physical and virtual hand-held tools to see which is most useful will be studied. This is similar to a carpenter who has various tools for cutting, smoothing and engraving. So might a surface scientist want different tools for different tools for different tasks. Working with surface scientists, which tools and visualizations are most effective can be determined. A new and more powerful interface to AFMs will be designed and built. ***